An Explanatory Model of Lifesaving Intervention

This project aims to explain why some lifesaving interventions are implemented in the United States while others are not. Findings should prove useful to decision makers who are responsibe for promoting the implementation of lifesaving interventions. The proposal calls for (1) Identifying 300 lifesaving interventions in the fields of medicine, consumer product safety, transportation safety, environmental protection, and occupational safety and health that have been analyzed for cost-effectiveness. (2) Collecting data on the extent to which these interventions are currently implemented in the United States, the primary dependent variable under study. (3) Collecting data on economic, psychological and political variables that theory suggests may explain the extent of implementation. (4) Incorporating this information into a computerized database to be managed at the Harvard Center for RIsk Analysis, (5) Estimating an explanatory model using a variety of statistical methods. (6) Publishing two papers, one describing the HCRA database and one reporting the results of the explanatory model. ***//